Increasing Student Participation in Cluster Computing through IEEE Cluster 2009 Attendance

The project will support the attendance of 75 students at the IEEE sponsored Cluster 2009 meeting. Student attendance at this leading meeting will be greatly beneficial to the students and their interactions with leading researchers will promote their retention in this area.